Collaborative Research: OLC/SDSU/SDSMT Pre-Engineering Education Collaborative

Oglala Lakota College (OLC) proposes to extend and enhance its capability to
deliver the first two years of a Bachelor of Science degree program in engineering. This
capability will be developed through a Pre-Engineering Education Collaborative (PEEC)
established with the College of Engineering at the South Dakota State University (SDSU) and the
South Dakota School of Mines and Technology (SDSMT), and is referred to as the
OLC/SDSU/SDSMT PEEC (OSSPEEC). The project will establish collaborative offerings of
gateway and bottleneck courses that occur in the first two years of engineering curricula coupled
with on-reservation hands-on laboratory and service learning experiences on the PRR that will
increase Native American student retention in pre-engineering and engineering programs across
South Dakota. A major result of this project will be the establishment of a complete two-year pre-
engineering curriculum at OLC, which will enable our students to enter any four-year
undergraduate engineering program at the junior level. Further, this project will make an
additional unique or radical step in the transformation of classical engineering education at the
state colleges participating in the collaboration.
We propose to collaborate to develop and offer the courses required for an integrated two-year
pre-engineering program at OLC and to increase the success of OLC transfer and other Native
American students at SDSU and SDSMT through shared research, internship experiences, and
community building in the third and fourth years of an engineering program. The project will be
unique in the United States in that during the collaborative process of building OLCs pre-
engineering capacity, OLCs faculty and students will be helping to transform the concept of the
first two years of the engineering curriculum at SDSU and SDSMT. This will occur through the
integration of project based service learning and undergraduate research projects on the Pine
Ridge Reservation, which will involve professors and cohorts of students from SDSU and
SDSMT. Also, these projects will cultivate closer ties among our institutions and OST Tribal
Agencies through collaborative summer research and internship opportunities on the Pine Ridge
Reservation that will lead to the development of future collaborative NSF research proposals.